A Symposium on Karst Hydrology in the Humid Tropical Environment - Jamaica

9605003 Stednick This Americas Program award will support a workshop on karst hydrology and water quality issues in the Caribbean, to take place in Jamaica. Organizers are Dr. John Stednick, Colorado State University, and Michael White, Hydrological Consultants, Inc., Kingston Jamaica. The workshop will form part of an international symposium on hydrology in the humid tropical environment. The workshop will provide a forum for exchange of experiences and theories related to hydrologic and environmental impacts, conflicts, and solutions, when related to the uniqueness of the humid tropics. Because population growth in the developing countries of the region is subjecting karst aquifers to environmental stress, the theme is important and timely. The meeting will compare and contrast approaches to research problems, analyze hydrologic data, water and land-use practices, and discuss and evaluate the consequences of these activities on the sustainability of water resources. ***